Equipment to Support Instruction in Molecular Biology

Equipment is supporting efforts to offer instruction in molecular biology through formal coursework and independent research. The equipment purchased (spectrophotometers, transilluminators, electronic balances, microcentrifuges, pH meters, shaking waterbaths, an incubator, and a vacuum pump) will all be dedicated to student use, and replace equipment borrowed from research laboratories. In the Molecular Biology Laboratory, the goals are to 1. develop generally accepted theoretical and practical aspects of growth, maintenance, and isolation of host organisms, bacteriophage, and plasmid vectors, 2. complement, with laboratory experiences, existing lecture courses in genetics and molecular biology, 3. link techniques in molecular biology with concepts of biological significance and 4. provide the infrastructure for application of advanced molecular techniques.